Instrumentation for Enhancing Undergraduate Laboratories in Recombinant DNA and Biochemistry

9451245 Ogden Students majoring in biology and biochemistry receive hands-on training using modern technical procedures, instrumentation and computers, thereby enhancing their preparation and stimulating their interest in pursuing careers in the biological sciences. Project-oriented laboratories are introduced in the Recombinant DNA and Biochemistry courses. New laboratory exercises have also been introduced in Molecular Biology, Immunology, Microbiology and Medical Microbiology courses.